Assisting Underrepresented Scholars in their Pursuit of Aeronautical and Meteorological Education

Engineering - 41

This project is providing scholarships to highly motivated students from underprivileged backgrounds. Using a targeted pool of students who are participating in the Upward Bound and Math Science Regional Center programs, this project is enhancing these students' abilities to pursue degrees in aeronautical science and applied meteorology by providing both scholarships and strong student support programs. By developing a comprehensive progress plan for each student when they begin their studies, this program will help the students establish individual goals and objectives. A faculty mentor assigned to each student is designing a process to track how the students' are progressing academically. The scholarships recipients are provided with a host of support services including mentoring, advising, tutoring and other support elements that contribute to their success.